Workshop on Dynamic Programming and Water Resources

A conference and workshop will be held on the applicability of recent advances in computational techniques that promise to overcome impediments to engineering design of systems for management of water. Topics to be considered in water resource management include quantity and quality considerations of water supplies, conjunctive use of surface and groundwater, drainage systems for storm and wastewater, and reservoir design for flood control and water supply.